Sunlight Initiated Vibrational Photochemistry in Aqueous Environments

In this award, funded by the Experimental Physical Chemistry Program of the Chemistry Division and the Atmospheric Chemistry Program of the Division of Atmospheric Sciences, Geosciences Directorate, Prof. Veronica Vaida of the University of Colorado and her postdoctoral, graduate, and undergraduate student colleagues will examine the chemical reactivity of atmospheric molecules in aqueous environments, ranging in size form molecular complexes, aerosols, and the water-air interface. Primary studies will focus on the ability of solar radiation to excite vibrational overtones in these species which subsequently react. The ultimate goal of this research is to develop better models for atmospheric photochemistry.

Besides the broader impacts of this work on atmospheric science, the work will also impact new paradigms for renewable energy. In addition, the young researchers working on this research will be exposed to a unique, interdisciplinary research experience between a number of disciplines. In addition, Prof. Vaida will continue to use the results of her research to inform her diverse educational outreach activities.